Dynamics of the Termocline and the Large-Scale Circulation

9907271 Vallis
This project is a theoretical and numerical investigation into the coupled dynamics of the large-
and meso-scale circulation.The theoretical and conceptual work will be based on two sets of
coupled equations, the planetary- geostrophic (PG) and quasi-geostrophic (QG) equations. The
first part of the study focuses on the analysis of the subpolar gyre circulation in numerical
solutions of the PG equations without any effects of mesocale eddies (uncoupled from the QG
component). Double-gyre wind- and buoyancy- forced solutions of the PG model will be
considered, analyzed in detail, and compared to existing theories of the gyre regimes. The
second and third parts of the study will continue with the analysis of the coupled PG-QG model
and will focus on the interaction between the mesoscale and large-scale flows.